Travel To Attend: International Symposium High Pressure Che-mical Engineering; Erlangen, West Germany; Oct. 8-10, 1984

The principal investigator will present a plenary lecture at the meeting of the European Federation of Chemical Engineering to be held in Erlangen, West Germany, on October 8-10, 1984. He will also visit various laboratories involved in biochemical separations research, and will represent the USA at these meetings.